Nanotechnology Rural Education Initiative (NANOredi)

The Nanotechnology Rural Education Initiative (NANOredi) builds upon the success of Dakota County Technical College's (DCTC) ATE MnNANO project in partnership with the University of Minnesota's Nanofabrication Center. NANOredi's Nanoscience Technology certificate program provides students from rural communities in southeast Minnesota, who are interested in pursuing careers in nanoscience, with transitional opportunities before transferring to a metropolitan college or university. Minnesota State College-Southeast Technical's certificate program includes the three core nanoscience courses that are offered in the first year of the DCTC program as well as general education math and science courses. NANOredi, in partnership with the Rushford Institute for Nanotechnology, also provides a regional Nanotechnology Conference for leaders in industry, government, community organizations, and educational institutions to raise awareness of the opportunities and trends in nanotechnology.